Mathematical Sciences Computing Research Environments

9628495 Hall The Department of Mathematics at Michigan State University will purchase high level graphics equipment to satisfy the imaging requirements of the following research projects. (i) Computer Simulation for Patter Formation in Biology (Chicia Chiu) (ii) Mathematical analysis and numerical simulation of models of superconductivity (Qiang Du) (iii) Differentiable Optimization Techniques for Image Restoration Problems (Patricia K. Lamm) (iv) Geometric problems in Non-linear Dynamics (Sheldon Newhouse)